Northeast Kansas Elementary School Mathematics DisseminationProject

The University of Kansas is offering a three year teacher enhancement project to develop elementary teacher-leaders in northeast Kansas schools. For each of three years 42 elementary teachers will attend a three-week workshop on mathematics content and pedagogy consistent with the NCTM Curriculum and Evaluation Standards. The workshop will be led by a team of university mathematicians, mathematics educators, and elementary teachers. Staff will work closely with participants to design appropriate follow-up activities during the school year and will make regular site visits. A workshop for principals will also be held. Since teachers will be encouraged to return for a second summer, and the workshop designed to facilitate such participation, it is estimated that the project will involve directly approximately 100 teachers. Cost share by school districts and the university is approximately 21% of the project budget.